RUI: Search for Exotic Mesons

This three-year RUI grant supports the research of a faculty member, and two undergraduate students/graduate student (summer only) to participate in research at the Brookhaven National Laboratory AGS using the Multi-Particle Spectrometer (MPS). The experiment will search for OexoticO states with quantum numbers not allowed in a simple quark/anti-quark mesonic model. Examples of such states are glueballs or hybrid states of a glueball with a quark/anti- quark pair. There is an increasing interest within the nuclear physics community in meson and baryon spectroscopy, and this research lies at the interface between the fields of particle and nuclear physics.